Math Horizons

Mathematics of America Association (MAA) is developing a new publication called MATH HORIZONS (MH), a quarterly magazine for students enrolled in undergraduate mathematics courses and advanced high school students. Students would be significantly involved in the publication, which would have articles on a variety of mathematics topics, include problem sections, and provide career information.